Travel: Oregon Programming Languages Summer School 2025: Types, Logic, and Formal Methods

This award provides student travel for the 2025 Oregon Programming Languages Summer School (OPLSS) to be held at the University of Oregon. This summer school provides an important and valuable educational opportunity for students to study foundational topics related to programming languages and verification. The focus of this year's school is "Types, Logic, and Formal Methods". The significance and importance of the summer school include instruction on how to build and reason about reliability and correctness of computing systems; enhancing education of US students by exposure to and interaction with leading-edge research and researchers; and building international community and cooperation in foundational research areas. By supporting US-based students, the school will thus train the next generation of researchers and practitioners in both industry and academia.